I-Corps: Translation Potential of Flexible Electronics for Next-Generation Wearable Cardiac Diagnostics

This I-Corps project is based on the development of a flexible wearable patch that continuously measures both the electrical and mechanical activity of the heart. Cardiovascular disease often requires repeated clinic visits or single-mode monitors that may miss important changes occurring during daily life. This technology combines two complementary types of cardiac information in one comfortable, skin-conformal device, enabling longer-term monitoring outside traditional healthcare settings. Applications of this technology included hospitals, outpatient practices, telehealth programs, home-monitoring services, and medical device companies. The technology may provide a more complete picture of heart function, and may provide earlier detection of abnormalities, more informed clinical decisions, improved remote patient management, and reduced need for repeat testing.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a flexible dual-modal cardiac patch that integrates electrocardiogram and seismocardiogram sensing. The technology combines piezoelectric nanofiber sensors, flexible conductive electrodes, and stretchable electronics to acquire synchronized electrical and mechanical cardiac signals from a single skin-conformal platform. Its distinguishing advance is the integration of two complementary sensing modalities into a single wearable device, providing richer physiological information than conventional systems that primarily measure electrical activity alone. Functional proof-of-concept prototypes have demonstrated simultaneous signal acquisition, mechanical flexibility, and reliable operation during continuous monitoring. This may provide real-time, long-term monitoring that enables proactive and preventative disease management, significantly reducing health complications and mortality associated with cardiovascular diseases.